Collaborative Research: SHF: Medium: Efficient and Trustworthy Proof Engineering

Formal verification of software in a proof assistant (such as Coq) can establish the correctness of software, preventing software bugs that could otherwise lead to significant financial losses or even loss of life. Unfortunately, proof assistants are not currently well adapted to large-scale software development and are expensive to use in terms of both development time and expertise. The goal of this project is to increase productivity of proof engineers (i.e., users of proof assistants) via techniques that simplify development and maintenance of large verification projects, as well as to increase trustworthiness in the toolchain commonly used by proof engineers. The project's novelties include learning-based and analytical approaches for proof construction, extraction, and maintenance, as well as testing techniques for establishing the trustworthiness of proof assistants. The project's impacts are increased productivity and increased software quality.

This project develops techniques that help proof engineers (1) construct proofs by learning and enforcing conventions, automatically locating relevant lemmas, and synthesizing generalized invariants; (2) augment the extraction of executable code from verified artifacts with runtime monitoring for checking assumption violations and with novel support for generating executable variants of logical specifications; and (3) facilitate the maintenance of large proof repositories by detecting brittle proof scripts, as well as learning common transformations. Furthermore, to increase trust in the proof engineering toolchain, the investigators develop testing techniques that target the core components of proof assistants.